Alkylation of Isobutane with Light Olefins: Mechanisms and Process Improvements for Higher Quality Alkylates

The purpose of this work is to clarify the mechanism of sulfuric- acid-catalyzed alkylation of isobutane with light olefins, and to apply the knowledge obtained to modify alkylation processes to improve product quality and/or reduce operating expenses. Alkylates (produced by alkylation) are blended into gasoline at refineries to improve octane rating, increase volatility, and decrease viscosity. Both one-step (the present standard) and two-step alkylation processes will be investigated. Among the variables to be considered are temperature, composition of the acid phase (water, polymer, surfactant, and other additives), and viscosity.